Fighting Concurrency Bugs through Effect-Oriented Approaches

Among all types of software bugs, concurrency bugs in multi-threaded parallel programs are especially troublesome. They widely exist and are becoming increasingly severe due to the pervasiveness of multi-core machines. Existing approaches to detecting concurrency bugs mostly struggle at the complicated cause of concurrency bugs --- non-deterministic interaction among multiple threads in concurrent programs.

This project aims to address the concurrency bug problem through an effect-oriented approach. Specifically, it will provide (1) a characteristic study and a deep understanding of the error propagation process of real-world concurrency bugs; (2) an effect-oriented bug detection and testing framework that can identify potential failures in a program and search for concurrency bugs leading to these failures through backward analysis; (3) a bug-fixing tool that leverages the error propagation information identified above and suggests patches to software developers; (4) a general effect-oriented philosophy that can guide other tools related to multi-threaded parallel programs. This research will improve our understanding of the dependability problem of concurrent software, provide substantial tool support to help lower software development and maintenance costs, and improve software users' everyday experience through faster and more reliable software on a wide spectrum of platforms.